9th International Conference on Difference Equations and Applications (Main Theme: Mathematical Biology)

Sacker

The investigator and colleagues organize an international conference on
difference equations. This conference, ninth in a sequence, is tbe first
one with a mathematical biology theme. The meeting brings together both
experts and novices in the theory and application of difference equations,
and experts in mathematical modeling of biological systems. In addition to
presenting new results, they explore the role of difference equations in
modeling biological phenomena and the advances in difference equation
theory stimulated by biological models. The conference features 14 plenary
talks and about 40 shorter talks. Topics covered include population
biology, population genetics, mathematical ecology, epidemiology,
asymptotic behavior, stability, and complex nonlinear dynamics including
chaos. Using the successful model implemented at the Society of
Mathematical Biology conferences, the meeting includes a mentoring program
for student and postdoc participants. Special efforts are made to recruit
a diversity of participants from under-represented groups. Proceedings of
the conference, including a session on future directions, are published.

Difference equations are apparently simple ways to describe the changes in
a system from time to time. They are analogous to differential equations,
which include derivatives that describe the instantaneous changes of the
variables of the system. Unlike differential equations, however, the
changes in variables of a difference equation need not be thought of as
instantaneous. This makes difference equations well suited to model a wide
variety of phenomena that occur in distinct stages, such as changes between
generations of plants or animals. The principal investigator and his
colleagues organize a conference about recent advances in the theory of
difference equations, the application of difference equations to modeling
of biological phenomena, and new mathematical questions about difference
equations that arise in the course of this modeling. Emphasis is given to
applications in population biology, genetics, ecology, and epidemiology.
The meeting involves students and postdocs, including participants from
under-represented groups. Proceedings of the meeting are published,
helping to disseminate more widely the results of the conference.